Collaborative Research: Fusion of Tomography Tests for DNAPL Source Zone Characterization: Technology Development and Validation

0229713
Illman

Dense Nonaqueous Phase Liquids (DNAPLs) are prevalent at a large number of
sites throughout the world. The variable release history and geologic
heterogeneity make the distribution of DNAPLs in the source zone complex.
These source zones can contribute to long-term groundwater contamination
for decades to centuries. Therefore, the spatial distribution, mass, and
composition of DNAPLs present in the source zone need to be characterized
in great detail so that efficient remediation schemes can be designed.
During the last few years, many tracer techniques have been introduced to
enhance the characterization of DNAPL source zones. While these tracer
techniques allow for the in situ estimation of volume-averaged values of
DNAPL saturation, there is an urgent need for the development of a
cost-effective technology to characterize the spatial distribution of
DNAPLs at high resolutions.

The objectives of this proposed study are: 1) to develop a
software/hardware package that fuses different types of information using a
stochastic approach to provide a cost-effective characterization,
monitoring, and predictive tool for the DNAPL source zone, 2) to conduct
laboratory experiments to test and verify this proposed technology, and 3)
to distribute the results of the research to assist scientists, engineers,
and managers to solve DNAPL contamination problems.

Intellectual Merit: The proposed new data processing
technique, stochastic information fusion, combines different types of
measurements taken at different locations over different scales in an
iterative manner to provide the best estimate of the DNAPL residual
distribution and its uncertainty. Specifically, it analyzes the
information derived from hydraulic tomography to identify hydraulic
heterogeneity first in three-dimensions. It then improves the estimate of
the heterogeneity by incorporating new information acquired from the
conservative tracer tomography. Afterward, the improved estimate of
hydraulic heterogeneity is used to simulate the hydraulic tomography such
that more detailed information about the response of the subsurface becomes
available. This new information again is fed back to the technique to
update the estimate of hydraulic heterogeneity. The iterative process
continues until all available information and measurements are fully
utilized in identifying the processes and variables that control the
spatial distribution of DNAPLs. Upon completion, the newly derived
knowledge of the processes and variables are then combined with data
derived from the partitioning tracer tomography to effectively delineate
the spatial distribution of DNAPL residual saturation in the source
zone. The proposed tomography technique and the stochastic fusion of
information algorithm are to be tested and validated in a sandbox. Success
of the proposed research advances not only estimation theory in general but
also our technologies for characterizing and monitoring the subsurface.

Broader Impacts: The proposed stochastic fusion technology can be
integrated with different characterization techniques in diverse geological
conditions. It is also amenable to all stages of DNAPL source zone
characterization including initial screening, site characterization,
remediation, and long-term monitoring. A web-based virtual
hydraulic/tracer tomography laboratory will be created and be available to
any student, educator, practitioner, and researcher around the world. We
believe this virtual laboratory will stimulate creativity to revolutionize
not only classical subsurface hydrology but also other disciplines of
hydrologic sciences. For example, using our stochastic information fusion
technology, one may be able to assimilate meteorological information such
as lighting and precipitation as alternative excitation sources for
tomographic surveys of the subsurface environment at large scalesseeing
into the earth.